For Support Services for Research Information Processing and Dissemination

This award to Editorial Experts Inc., will assist the Directorate for Engineering (ENG) with editorial and conference support. The goal is to make the results of basic engineering research available to other researchers, industry, and the public. The quick and accurate dissemination of such information from ENG through the efforts of Editorial Experts, Inc. will undoubtedly have a major impact in the advancement of the Nation's technological progress.